Nonlinear Observers, Normal Forms and Model Reduction

0204390
Krener

This proposal is for research on several promising new approaches to
designing an observer for a nonlinear control system, including
linearization of the state error dynamics, backstepping and multiple
extended Kalman filters. In order to decide which type of observer is
appropriate for a given nonlinear system, one needs a classification of the
range of possibilities. Therefore a study of the normal forms of a nonlinear
system under a group action that is appropriate to observer design is also
proposed.

A control system is a mathematical model of a real world process. It has
inputs and outputs which model the way the way the system interacts with
the external world and has state variables, which describe the internal
memory of the system. The state evolves according to some dynamical
model driven by the inputs and the output is some function of the state and
possibly the input. The fundamental problem of control systems is to
close the loop in such a way as to achieve stability. We wish to use
negative feedback based on the current state to stabilize the system to
some desirable operating regime. But usually the current state is not
directly measurable so we must design an observer to estimate it from the
past inputs and outputs. The development of nonlinear observer design
methodologies is a paramount problem of systems theory and its
applications. There is no current approach that is effective for all
nonlinear systems.